Electrospray Mass Spectrometry Equipment for Chemical and Biochemical Research

This award from the Chemistry Research Instrumentation and Facilities Program will help the Department of Chemistry at Colorado State University purchase an electrospray probe and associated liquid chromatography sample introduction accessories for a Fisons/VG Quattro-SQ mass spectrometer, which will be used in research. The research activity to be supported includes:(1) mechanisms of DNA crosslinking by the anti-tumor antibiotics, (2) mechanistic studies of nucleic acid damage, (3) the association between polyelectrolytes and lyotropic liquid crystals, (4) characterization of iridoid and other glycosides isolated from medicinal plants, (5) the synthesis and physical studies of so-called supramolecular assemblies, (6) identification of the fragile polychalcogenide anions in solution, and (7) the characterization and estimation of purity of fluorinated carborane anions. Mass Spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic and organometallic molecules. The addition of the technique of electrospray extends the range of MS to protein and nucleic acid molecular weights far beyond those accessible by any other technique. The use of electrospray ionization in combination with high resolution provides the latest techniques available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry.